An Intelligent Visual Perception System Based on Retina Structure

This research deals with in intelligent vision perception system modeled after a human cognitive system (retina); specifically, a multilayer parallel focal plane array image processing system that combines this company's highly advanced optical interconnects and waveguide hologram techniques with a multilayer serial-parallel structure; a RETinally INspired Algotecture (RETINA). A 3-layer RETINA structure and algorithms are being carefully studied and implemented. The first layer performs edge enhancement, the second, reduced and/or eliminates noise, and the third implements line construction algorithms to enhance results. Sobol, median and 3-pixel line segments are being used for each corresponding layer. Phase I of this program will produce (1) a useful algotecture, (2) a determination of how it will work with noisy, nouniformly-lit images, (3) an understanding of component tolerance, (4) the critical waveguide hologram illuminator, and (5) a first-order system design. An edge lit waveguide hologram which is the critical physical component will also be constructed, perfected, and tested